Asymptotic Problems in Fluid Mechanics, Gas Dynamics and Quantum Mechanics

Proposal DMS-0403983
PI: Nader Masmoudi, Courant Institute-NYU
Title: Asymptotic problems in fluid mechanics, gas dynamics
and quantum mechanics

ABSTRACT

The Principal Investigator (PI) proposes to continue working on
some asymptotic problems coming from Fluid Mechanics, Gas
Dynamics and Quantum Mechanics. These asymptotic problems arise
when a dimensionless parameter (such as the Reynolds number, the
Mach number or a time scaling) goes to zero or to infinity. In
studying these problems, many mathematical difficulties arise.
These difficulties are mainly due to the change of the type of
the equations, the presence of many temporal and spatial scales,
the presence of resonances, the presence of boundary layers ...
Many tools have been developed to circumvent these difficulties
such as the introduction of different types of measures to
describe the defect of strong convergence,
the use of compensated compactness type
arguments, the use of averaging lemma, the use of
energy methods and relative entropy methods ... Of course, many
other tools should be developed in the future. More specifically
the PI plans to continue working on the hydrodynamic limits of
the Boltzmann equation when the Knudsen number goes to 0
especially in bounded domains and relate this to some of the known
results in the compressible-incompressible limit. He also plans to
look at the limit when the Weber number goes to infinity in the
water wave problem.

The PI proposes to study some asymptotic problems coming from
Fluid Mechanics, Gas Dynamics and Quantum Mechanics. The study of
these asymptotic problems is very important to get a better
understanding about the behavior of complicated systems in
different limiting cases. This also allows to have a better
understanding of the real physical phenomenon taking place.
Moreover, it provides a way of giving rigorous derivations of
different physical models. It also gives a better knowledge about
the domain of validity of each simplifying model. This is very
important for engineers and physicists who are looking for the
simplest model that captures the phenomenon to implement
numerically or to apply in real life.